Retrofit of Aanderaa Current Meters

This proposal will permit the upgrade of five current meters and the purchase of five new ones to conduct a test of the capability of both for future deployments in WOCE experiments of two-year duration.